Vanderbilt University Biomedical Engineering RET Site Project

This award provides funding for a 3-year standard award to support a Research Experiences for Teachers (RET) Site at Vanderbilt University, entitled, "Vanderbilt University Biomedical Engineering RET Site Project." The program will provide a four-week summer research experience for fourteen math and science teachers from the Nashville, TN, Metropolitan Public and Private Schools as well as from six neighboring counties.